DRU: Network Structure, Behavioral Considerations and Risk Management in Interdependent Security Games

DRU: Network Structure, Behavioral Considerations and Risk Management in Interdependent Security Games

Michael Kearns Howard Kunreuther
Computer and Information Science Operations and Information Management
University of Pennsylvania Wharton School
University of Pennsylvania

ABSTRACT

Interdependent security (IDS) games model situations where each player has to determine whether or not to invest in protection or security against an uncertain event knowing that there is some chance s/he will be negatively impacted by others who do not follow suit. IDS games capture a wide variety of collective risk and decision-making problems that include airline security, corporate governance, computer network security and vaccinations against diseases. This research project will investigate the marriage of IDS models with network formation models developed from social network theory and apply these models to problems in network security. Behavioral and controlled experiments will examine how human participants actually make choices under uncertainty in IDS settings. Computational aspects of IDS models will also be examined. To encourage and induce individuals to invest in cost-effective protection measures for IDS problems, we will examine several risk management strategies designed to foster cooperative behavior that include providing risk information, communication with others, economic incentives, and tipping strategies.

The proposed research is interdisciplinary in nature and should serve as an exciting focal point for researchers in computer science, decision and management sciences, economics, psychology, risk management, and policy analysis. It promises to advance our understanding of decision-making under risk and uncertainty for problems that are commonly faced by individuals, organizations, and nations. Through advances in computational methods one should be able to apply IDS models to large-scale problems. The research will also focus on weak links in an interdependent system and suggest risk management strategies for reducing individual and societal losses in the interconnected world in which we live.